I3: Towards a Center for STEM Education

The University of Colorado is establishing a Distributed Center for STEM Education Research and Transformation that integrates education projects across the campus. The Center addresses the three themes outlined in the National Academy of Science report "Rising Above the Gathering Storm". These are: (1) Teachers in K-12 education (10,000 Teachers, 10 Million Minds), (2) Research (Sowing Seeds), and (3) Higher Education (Best and Brightest). This Distributed Center involves eight traditional departments in three colleges and schools, including: Education, Life Sciences, Mathematics, Physical Sciences, and Engineering. Existing education projects being integrated into the center include: ADVANCE (Increasing the Participation and Advancement of Women in Academic Science and Engineering Careers); Course Curriculum and Laboratory Improvement projects; Robert Noyce Teaching Scholarship project; Integrative Graduate Education and Research Traineeship projects; and Research and Evaluation on Education in Science and Engineering projects.